Oceanographic Instrumentation - 2009

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The University of Miami requests funding for additional and back-up instrumentation on the R/V Walton Smith a 96,? general purpose regional vessel and R/V Seward Johnson a 204?, general purpose intermediate research vessel. R/V Walton Smith is operated by the University of Miami Rosenstiel School of Marine and Atmospheric Sciences (RSMAS) and R/V Seward Johnson by Harbor Branch Oceanographic Institution (HBOI). Both are operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request for the sub-bottom transducers will be funded along with other units to supply the fleet. The award will include funds for 5 seperate systems, one each for:

Oregon State
Scripps
Woods Hole
Miami
Spare system for fleet.

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers. In particular, the use of group purchases as is reflected in this award, are cost saving measures that benefit the entire fleet.